Collaborative Research: SHF: Scaling E-graphs for Incremental Analysis and Optimization

Equality saturation is a compiler optimization technique that compactly represents many equivalent versions of a program in a data structure called an e-graph. By keeping all known equivalent forms together, equality saturation avoids the "phase ordering" problem that has long limited traditional compilers, where applying one optimization can block another. The technique is now used to build state-of-the-art compilers for graphics, scientific computing, and general-purpose programming languages. However, today's e-graphs are single-use: each compilation builds a fresh e-graph and discards it when finished, even when the next compilation is on a nearly identical program. This wastes substantial computing resources across software development, scientific computing, and artificial intelligence workflows, and limits how responsive interactive developer tools and large-scale scientific pipelines can be. The project's novelties are persistent e-graphs, a new long-lived form of this data structure that lets a compiler reuse the results of past program analyses across many edits and many programs, together with a technique called e-graph distillation that keeps these long-lived structures small and fast by automatically discarding low-value information. The project's impacts are faster and more energy-efficient compilation across modern computing workloads, broader access to advanced compiler optimizations whose long running times currently limit them to specialists with substantial compute budgets, and an open-source community infrastructure that brings these advances to researchers, students, and industry practitioners through public software releases and the annual EGRAPHS workshop.

The project develops persistent e-graphs as a foundational data structure for incremental analysis and optimization in equality saturation. The investigators introduce e-graph distillation, a generalization of e-graph extraction that selects valuable sub-e-graphs to retain across compilation queries while keeping per-query work fast. The project pursues three coordinated thrusts. The first thrust extends the egglog e-graph engine with a persistent substrate that supports efficient distillation and incorporation across queries. The second thrust develops a garbage collection layer that prunes low-value e-graph fragments based on client cost models, derivability, and reuse activity, drawing on prior work in adaptive memory management. The third thrust develops a new iterative extraction algorithm that enforces global invariants such as heap linearity and control-flow dominance through counterexample-guided refinement, avoiding the need for expensive integer-linear-programming or SAT solvers. The investigators evaluate these advances in both production and research compilers they contribute to including the Herbie floating-point accuracy compiler, and the eggcc general-purpose compiler. Expected advances include open-source persistent e-graph implementations integrated into the broader egglog ecosystem, validated speedups on incremental compilation workloads, and theoretical foundations that allow equality saturation to scale to constraint-rich settings previously out of reach.